Collaborative Research: Developing Automated Nutrient and Trace Metal Methodology using Programmable Flow Injection

Progress and discovery in the understanding of the chemical processes that regulate the growth of phytoplankton in the marine environment is limited by the ability of oceanographers to measure nutrients and trace metals at relevant spatial and temporal scales. This project aims to develop a new generation of autonomous and highly sensitive nutrient and trace metal analyzers for shipboard use and deployment at coastal monitoring stations, with potential for incorporation into existing autonomous observing platforms (e.g., gliders, autonomous underwater vehicles). Such a development will generate new insights into nutrient dynamics at a range of spatial and temporal scales and provide a new capability to obtain high resolution data sets for nutrients and trace metals in remote areas and environments where sample volumes are limited (e.g., brines, pore waters).

This project will develop novel automated methods for nutrients (phosphate and silicate) and trace metals (aluminium, manganese) using a technology called programmable Flow Injection (pFI). pFI is a microfluidic technique, which allows to automate conventional wet chemical analysis using microliter volumes of sample and reagents while significantly reducing the generation waste. In order to bring low levels of trace metals and nutrients that characterize remote ocean regions into the analytical window of pFI, concentration techniques will also be developed and coupled to spectrophotometric and fluorescence detection. The developed methodologies will be intercalibrated with standard oceanographic methods by participating in a GO-SHIP research cruise and a Hawaii Ocean Time-series cruise of opportunity. The long-term, unattended operation of the pFI analyzers will be evaluated at the Central California Ocean Observing System (CenCOOS) Moss Landing Shore station, where autonomous pFI analyzers will be deployed to undertake a year-long, hourly time series of phosphate and silicate. The data obtained from the shore station will be made publicly available and will complement existing monitoring data from this location, illuminating the connection between deep ocean nutrient dynamics and biological activity in coastal upwelling systems. The newly developed pFI analyzers will be assembled using commercially available components and open source software to facilitate uptake of this new methodology by the chemical oceanography community at large. This project will also support the training and exchange of at least two graduate students at the University of Hawaii at Mānoa and the Moss Landing Marine Laboratories, who will represent the next generation of specialists in the development and application of pFI methodologies to chemical oceanography.